RIA: Constitutive Relations and Failure Criteria for Materials with a Distribution of Properties

9308532 Haghi A theoretical framework is developed for constitutive equations and failure criteria for a material whose properties are nonuniform, and are characterized by distribution functions. Evolution equations are derived for the distribution functions based on different models of how the body's parts interact with one another, such as the equal strains (or Taylor) model, and compared with full finite element calculations. A set of experiments will be conducted on Lead specimens with precise arrangements of embedded spherical voids, at high homologous temperatures typical of hot working operations. These experiments will systematically examine the effect of the distribution of porosity on ductile fracture. ***